Analysis of the Role of Clavata1 and Clavata2 in Shoot and Floral Meristem Development

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at George Washington University acquire a Phase-Doppler Particle Analyzer. The research activity to be supported includes: (1) investigation of novel nebulization systems and high-temperature helium plasmas in analytical spectrometry for elemental analysis, (2) investigation of plumes generated by laser ablation from metals, insulators, and high-transition temperature superconductors, (3) investigations of the production and monitoring of pollutants in diffusion flames, an area of interest for the gas industry, (4) development of efficient practical high-order computational methods for the simulation of physical phenomena described by unsteady nonlinear three-dimensional partial differential equations. A Fourier transform mass spectrometer is capable of extremely high mass-resolution and is used to measure the precise molecular weight of a molecular ion. It may also be used to obtain highly detailed information about ion molecule reactions in the gas phase. This information may be used to help determine the atomic composition and, sometimes, the molecular geometry of a molecule.